Elements: Spatiotemporal Analysis of Magnetic Polarity Inversion Lines (STEAMPIL)

Extreme space weather events such as solar flares, coronal mass ejections, energetic proton events and geomagnetic storms can cause massive disruptions in many technologically complex systems, including radio communications, telecommunication and navigation satellites, electrical power systems, or space and even commercial airline flights. This project builds a detection and analysis cyberinfrastructure, and investigates one of the most distinctive features in the solar atmosphere – magnetic polarity inversion lines, which are hotspots of the most intense eruptive activity. Analyzing these features enables solar physicists to advance understanding of extreme space weather events and provide needed predictive capabilities for space weather forecasters.

This project creates an innovative and sustainable software infrastructure to detect, characterize and analyze polarity inversion lines. The first step toward that objective is the identification of polarity inversion lines, and quantitative characterization of these multi-faceted features through image descriptors. In subsequent stages, this project analyzes the time series of these features and descriptors using advanced machine learning and data mining techniques, specifically for improving space weather forecasting capabilities. This includes analyzing the spatiotemporal patterns of emergence and disappearance for polarity inversion lines, selecting and understanding important shape characteristics of these lines pertinent to solar eruptive activity, and creating a prototype eruption forecasting system with discovered precursors. Automatically identifying and analyzing polarity inversion lines has several direct benefits: physically understanding solar magnetic shear layers and the transition from typical non-eruptive active region states to intense, eruptive ones; making contributions to forecasting of solar eruptions; and generating descriptors and measures that can be useful to the study of shear layers in nature.

This award by the Office of Advanced Cyberinfrastructure is jointly supported by the Solar Terrestrial Physics Program and the Division of Integrative and Collaborative Education and Research within the NSF Directorate for Geosciences.